Postdoc: Parallel hp Adaptive Finite Elements for Viscous Incompressible 3D Flows

9504075 Oden The almost simultaneous development, over the last decade, of hp adaptive finite elements and multi-processor computing as means of dramatically improving fluid flow simulations makes the possibility of combining them very intriguing. The potential payoffs are very high but there are many challenges before such a combination can be achieved. Promising new developments in data structures, adaptive strategies, problem decomposition and robust parallel equation solvers, albeit in the context of model elliptic problems, make this problem tractable. In this project an attempt will be made to extend most of these developments onto solving complex three dimensional viscous incompressible flows. In particular this project will develop a new hp adaptive finite element code built on top of an extendable hash table based data structure and equipped with sophisticated a posteriori error estimators, adaptive strategies for generating optimal meshes, and customized preconditioned conjugate gradient type parallel equation solvers.